SSC: The Clark Atlanta University Summer Science Camp Program

Clark Atlanta University will sponsor a four-week Summer Science Camp for fifty seventh and eight grade students each summer for the three-year period, 1996-1998. The goals of the Clark Atlanta University (CAU) Summer Science Camp (SSC) Program are to provide a foundation and support to promote the development for a lifelong interest in the sciences, engineering and mathematics (SEM) for all of its participants and to encmurage participants to consider careers in SEM. Program participants, selected from elementary and middle schools in Metropolitan Atlanta, will enroll in an academic enrichment experience that includes interdisciplinary science, computer applications, mathematics, and communications skills. Instruction will emphasize problem solving and critical thinking while focusing on real life situations. In addition to classroom experiences. participants will interact with research scientists in their laboratories and in career awareness seminars and discussion groups. Weekly field trips will round out the academic experiences of the Program. Follow-up activities during the academic year include workshops each semester for program participants and their parents, an awards program at the end of the school year, a mentoring program in which participants will be matched with undergraduate or graduate student science majors who will serve as their mentors, and two newsletters each semester that highlight the accomplishments of the participants and Clark Atlanta University Scientists. ***